An Undergraduate Mac Hypercube Laboratory

This project develops a concurrent processing facility (a hypercube) for students in the Departments of Computer Science and Mathematics. This new laboratory supports courses and projects in numerical methods by providing experience with Hypercube Topology, Language Constructs, Utilities, Gaussian Elimination, Commun- ication Overhead, Perfect Parallelism and Load Balancing. Key equipment includes an ensemble of 5 Apple Macintosh IIci computers and AppleTalk. This Mac-based hypercube is designed according to the prototype developed at Caltech using LocalTalk hardware and AppleTalk software as the medium for the nodal connections. The award is being matched by an equal amount from the principal investigator's institution.